Doctoral Dissertation Research in Sociology

This is a doctoral dissertation project to study women's responses to the child birth experience and to the medical treatment during childbirth. In-depth interviews will be conducted with women before and after the birth of their child. The study will contribute to the understanding of the social psychological processes which accompany childbirth and possibly to the development of policies that would improve women's child birth experience.